Solution Properties of Hydrogen-Bonding Polymers and Co-Polymers

9407741 Pincus This theoretical research will be carried out at both the University of California at Santa Barbara and the University of California at Los Angeles. Analytical and simulational investigations will be done on polymers which are soluble in aqueous solvents because of hydrogen bond formation between the solvent molecules and the moities on the chain, e.g., oxygen on the backbone of polyethylene oxide. The particular focus will be on the interplay between the chemical nature of the hydrogen bond and the hydrophobic interaction associated with the hydrocarbon backbone. These uncharged hydrosoluble polymers have important applications to technological issues associated with the use of inorganic solvents and also as models for the activity and function of a class of biopolymers. The work will be extended to copolymers where one part has hydrogen bonding character and the other part is a more typical hydrocarbon. Such copolymers are potential candidates for vesicle stabilizers in drug delivery systems. %%% This theoretical research will be carried out at both the University of California at Santa Barbara and the University of California at Los Angeles. Analytical and simulational investigations will be done on polymers which are soluble in water. ***